SBIR Phase II: Stateless - Taking from the Lab to a Production Environment

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project results from the fact that it builds on the trend to make IT infrastructure consumable as a service and unlocks this potential for network functions. In deploying the Stateless Network Functions as a Service solution, cloud providers, enterprises, and internet service providers are able to launch network functions, such as firewalls and load balancers, on demand, and the Stateless platform automates the management of these functions. With cloud traffic expected to quadruple over the next several years (according to Cisco), a rapid growth in number of devices (with the Internet of Things emerging), and an ever-increasing complexity and scale of security threats, this project will provide operators with the agility to quickly and easily deploy infrastructure to keep up with these trends and threats. In doing so, society will experience more reliable networked applications with reduced data breaches.

This Small Business Innovation Research (SBIR) Phase II project provides the research and development needed to realize the vision of a network function operating system. Whereas the Phase I project established technical feasibility by demonstrating the technology that decouples network functions state from processing can be turned into a product and integrated into a production environment, the Phase II project will approach three new research directions that will support a complete platform. (i) Network service chaining: While not a new concept, it is one that has proven to be challenging with virtual appliances. This project will add support to the Stateless platform to connect network functions into chains, elastically scale chains, and provide quality of service of the whole chain. (ii) Observability: This project will introduce the ability to abstract away the details when appropriate or peel away the layers of abstraction as needed, providing operators with a simple solution they have full control over. (iii) Software development kit: This project will introduce both the application programming interfaces as well as the isolation mechanisms to allow third parties, whether other vendors or data center operators, to introduce new network functionality based on the Stateless platform.